Introduction to Molecular Biology and Molecular Diagnostics:Continuing Education for Community College Science Faculty

This is a proposal for multi-year funding in support of an integrated and expanded instructional program for community college faculty. The proposal will introduce molecular biology and molecular diagnostics as continuing education. The proposed program will continue to offer the week-long summer institute in molecular biology and add to that a new summer institute in molecular diagnostics in which the principles of molecular biology find applications in several areas of biotechnology. In addition, it will expand follow-up program services and other participant contacts with university faculty and industry researchers. Internships for community college faculty will continue as a part of the program.